Postdoctoral Research Fellowships in Chemistry

Dr. Stephen E. Johnson has been awarded a Postdoctoral Research Fellowship in Chemistry. Dr. Johnson's doctoral degree was from the University of Massachusetts under the supervision of Professor Robert Holmes. Dr. Johnson intends to continue research at UCLA under the sponsorship of Professor M. Frederick Hawthorne. Dr. Johnson's area of training and research will be structural, spectroscopic and theoretical studies of main-group rings, clusters and hypervalent species. Specific research targets will be the synthesis, catalytic and materials properties, and bioinorganic applications of multiply-bonded boron systems. The Postdoctoral Fellowships in Chemistry Program is viewed as an important infrastructural program designed to broaden the knowledge and experience of new Ph.D's and attract them into meaningful careers in contemporary chemical research and teaching.